STTR: Analytical Microseparations with Nuclear Magnetic Resonance Detection

9523220 Peck This research is to extend current models of nuclear magnetic resonance (NMR) detection cells to obtain a two order of magnitude improvement in sensitivity. The current NMR spectroscope has limited application as a detector for microseparations because of its relatively poor sensitivity. The new cells will employ specially designed RF microcoils that will be used in flowing analytical separation while retaining the full NMR capability for structural determination. This enables the cells to analyze mass-limited and volume-limited samples of chemical species. The overall goal of this research is to create a new generation of optimized nanoliter volume NMR detection cells for commercialization for liquid chromatography and capillary electrophoresis microseparation studies.